Teacher Retraining Institute

This 40-month project provides courses and internship activities for teachers of science who have a minimal background in the science they are teaching. The project will teach content, develop hands-on laboratory activities and provide an internship experience to follow up on the coursework to assure the implementation of new approaches in the classroom. The target schools have a large minority population (60% Black, Hispanic, Asian, Filipino, Pacific Islanders) and have not been traditionally strong in the sciences. In addition to basic science courses, advanced, or enrichment, courses will be offered to those who reach the appropriate level of preparation. A total of 252 teachers will be involved in the project over its three year duration. The project will be advised by a Planning Committee which consists of teachers, school administrators, local representatives of business and industry, and University personnel. Design teams will be chosen from the schools to aid in the development of the course curriculum. The NSF portion of the total project cost is $792,688 matched by $191,569 of institutional support. Thus the cost share is approximately 24%.